ITR: Phase Retrieval Algorithms

X-ray crystallography is a fundamental technique for determining the structure of proteins. However, the physics of this process means that information about the relative phases of the thousands of x-ray beams used in the process is lost. The recovery of phases is referred to as "phase retrieval." Essentially all modern algorithms for phase retrieval are iterative, including the well-known "Shake and Bake" algorithm. However, a general problem with iterative approaches is that the iterates are drawn to attractors that are not true solutions. This project will investigate a significantly different, non-iterative approach that does not share this drawback. If successful, the result will be a computing environment that will benefit a variety of disciplines that engage in phase retrieval.

The new algorithm exploits techniques in optimization theory that have never been used in phase retrieval before. One key idea is to use a different objective function from past approaches: the zero-frequency component, or "charge" Q. A key property of Q is linearity, which avoids the many local minima that stagnate iterative methods for other objective functions. In the language of optimization theory, the objective function Q permits a direct translation of the phase retrieval problem into a mixed-integer program (MIP). Decades of research on solving MIPs can thus be applied to solve difficult instances of phase retrieval encountered in crystallography.